RI: Robust implementation of foot placement for balance of 3D bipedal walking

Andy Ruina's group at Cornell will master the use of foot
placement as a means for balance in robotic walking. Ruina's
previous research shows that, in principle, a robot could walk,
say, 10-20 km on a single battery charge much like a person can
walk a similar distance on energy from a good meal. In practice,
however, typical robots today only walk tens of meters. The
efficient machines fall down too often. The stable machines run
out of energy. Today's robots are either efficient or stable,
but not both. This shortcoming represents a lack of understanding
of the nature of balance using foot placement.

Ruina's approach will build on his Cornell lab's success in
making bipedal robots whose energy use, per unit distance and
mass, is comparable to that of humans. The new robots will
improve on the robustness in the previous efficient machines by
using controlled foot placement for balance.

Successful design and construction of the proposed new robots
will demonstrate the utility of holding energetic efficiency,
control simplicity and control robustness paramount in the design
of humanoid mechanisms. Further, general understanding of
machine efficiency and stability will be enhanced.